Exact and Approximate Markov Chain Sampling Algorithms

ABSTRACT

Prop ID: DMS-0503648
PI: Hobert, James P.
NSF Program: STATISTICS
Institution: University of Florida
Title: Exact and Approximate Markov Chain Sampling Algorithms

The disadvantages of Markov chain Monte Carlo (MCMC) methods (relative
to classical Monte Carlo techniques) can sometimes be overcome via
perfect sampling, which is a method of converting the underlying
Markov chain into an algorithm that produces independent and
identically distributed samples from its stationary distribution.
Unfortunately, perfect sampling algorithms have not lived up to their
expectations for handling intractable distributions whose support is
unbounded and continuous. The investigator develops a wide-ranging
perfect sampling algorithm that is particularly well-suited to such
distributions. The basic idea is to exploit a mixture representation
of the a stationary distribution. The investigator also studies
techniques for Bayesian analysis of the market model, which is a
multivariate regression model used by financial economists to analyze
data on asset returns. Empirical evidence and theoretical arguments
suggest that the errors in this model should be from a heavy-tailed,
elliptically symmetric distribution. However, the Bayesian
methodology that has been developed for making inferences via the
market model is based on the assumption of multivariate normal errors.
This disconnect is presumably due to the fact that the posterior
distributions corresponding to the heavy-tailed alternatives are
highly intractable. The PI develops and analyzes Monte Carlo and MCMC
methods for exploring such posterior distributions.

Bayesian statistical methods of analyzing data often require the user
to deal with intractable probability distributions. The investigator
develops sampling algorithms that facilitate the use of such Bayesian
methods. These algorithms enhance infrastructure for research and
education by providing scientists from many different disciplines with
better techniques for making inferences from their data.
----------------------------------------------------------------------